NSF FF: Planning: Design-Based Planning of AI-Enabled, Place-Based Learning Systems to Increase STEM Achievement for Middle and High School Students in New Mexico

This FINDERS Foundry award supports iterative cycles of stakeholder engagement, analysis and co-design to design a tool that will improve K-12 STEM achievement. The interdisciplinary team of students, parents, teachers, counselors, and community partners will identify persistent problems of practices and commit to a collaborative iterative design process to identify root causes, clarify user needs, and co-develop an initial concept that integrates responsible AI and place-based learning. This project has the potential to improve access to high-quality, locally relevant STEM learning opportunities; strengthen pathways into engineering and related fields; and support educators and families as active partners in STEM learning.

This FINDERS Foundry award utilizes a design‑based implementation research approach to define an AI‑enabled, community grounded STEM‑learning model for middle‑ and high‑school contexts. The project will identify persistent instructional challenges, clarify stakeholder needs, and produce an initial system concept that integrates AI‑supported tools with place‑based learning practices. Steps in the co-design process include will include gathering perspectives on barriers to STEM achievement, synthesizing findings into a clear challenge statement, generating and refine an initial wireframe, and defining technical, pedagogical, and organizational requirements for a future prototype. This work establishes the foundation for a future development‑phase proposal centered on accessible, AI‑supported STEM opportunities.